Molecular Modeling and Computational Chemistry in the Undergraduate Curriculum

This award equips a molecular modeling and computational facility that enhance lectures, conferences, laboratories, and homework assignments throughout the undergraduate chemistry curriculum: General Chemistry (Accelerated), Organic Chemistry, Physical Chemistry (Statistical Mechanics and Quantum Chemistry), Inorganic/Physical Chemistry Laboratory, Advanced Mechanistic Organic Chemistry, and Advanced Inorganic Chemistry. In these courses, calculations are carried out at one or more levels-semi-empirical and ab initio-depending on the course and the complexity of the problem. In addition, the facility is used for several research projects, involving collaboration between undergraduate students and faculty who have theoretical components to their research. *